Computation of High-Gradient Phenomena in Solid Mechanics

The aim of this research is the development and implementation
of effective numerical methods for the solution of partial differential
equations which model the nonlinear mechanics of solids. The principal
investigator will use numerical methods to study quasilinear
partial differential equations governing large motions of nonlinearly
elastic, elastoplastic and viscoplastic materials.
The equations governing the motions of such materials are generally
systems of hyperbolic conservation laws which are ideally suited for
numerical study. In particular, the PI will utilize an efficient numerical
scheme based on finite-difference approximations and inspired by numerical
methods from gas dynamics in order to study antiplane and radial motions
of elastoplastic materials, with the goal of characterizing the formation of shocks.
Additional effort will be directed toward the study of the formation of
shear bands in viscoplastic materials. The principal investigator will
study the effects of strain-gradient regularization on the development
and propagation of shear bands in two-dimensional nonlinear viscoplasticity.
This will include studies of problems where the solutions exhibit
narrow shear bands, across which rapid variations in strain occur.
The PI will develop adaptive pseudo-spectral methods to resolve spatial
regions where rapid variations occur during plastic deformation.

The behavior of materials such as rubber, steel, or concrete can be
described by complicated systems of partial differential equations which are
in general difficult to analyze. However, there are certain special
situations in which these equations simplify to a point where they can be both
analyzed theoretically and computed numerically. Examples include
the motion of a material block between a fixed and a moving plane and
the compression of a solid ball of material. As a focus of this project,
the principal investigator will investigate the nature of shock formation
and of permanent plastic deformation on the formation and propagation
of shocks for these types of motions. A second area of research is the
formation of shear bands. These are localized regions of intense shear
that form when ductile solids undergo large deformations. Shocks
and shear bands correspond to possible regions in which material failure occurs,
and their accurate determination is therefore very important. The principal
investigator will take advantage of the special form of the equations to
apply high-performance numerical methods that have been developed for
applications in gas dynamics.